Spatial Geometric Constraint Solving Using Constructive Geometry and Homotopy Continuation

The project develops the theory and implementation of a practical spatial geometric constraint solver that integrates symbolic methods from constructive geometry with numerical methods from homotopy continuation theory. Geometric constraint solvers are a key component in modern Mechanical Computer-Aided Design systems, and offer a critical technology for increased productivity, rapid response manufacturing, and agile manufacturing. Effective solvers exist for planar constraints, but spatial problems of moderate size exceed the capabilities of many research solvers. The solver being developed will cover the broad class of problems specified by distance, angle, and incidence constraints among points, lines, and planes. It will solve small problems interactively and problems of moderate size in a few seconds. Using a constraint graph whose nodes represent elements and whose edges represent constraints, a constraint analysis will decompose the constraint problem into a series of small construction problems that can be solved efficiently using preprocessing. Elementary constructions will be carried out algebraically, more complex construction steps by homotopy continuation. The hybrid algorithm combines the robustness and completeness of symbolic methods with the uniformity and efficiency of numerical methods.